Multichannel Sensor Systems and Physiological Neural Networks

A major instrumentation need in neurophysiology is the production of new sensor interfaces between brain and electronic devices. Advances in multichannel sensing of neural activity, detection of local levels of neurotransmitters, and other physiological parameters would be valuable as an evolutional step in studies of the normal physiology of neural circuits. Also, information on the local pattern of activity within connected neural structures and of local chemical release of neuromodulator substances will be needed to devise control or communication strategies within and between neural structures to understand effective neural function. A team of scientist at the University of Colorado, Denver and the University of Texas, Dallas are coordinating research activities which are developing biochemical probes and the technology to record from 32 sites simultaneously in neural tissue. This action is to support their activities which deal with multi-electrode array (dagger) and connector construction and the writing of computer software essential for data acquisition and interpretation.